Investigation of a Very Rapid Tectonic Process: Direction and Rates of Lateral Propagation of Reverse Faulting and Folding

9803115
Keller
A long standing problem relating to all tectonics is the lack of knowledge of the rates of deformational processes. This is especially true of the rates of folding, about which relatively little is know. The project focuses on an area in southern California where active folding is occurring near the Pacific shoreline. Here, the raised beach terraces form permanent markers of the paleoshoreline, and when they are dated and their present elevations measured, they will reveal the rates of propagation of these folds. This project has a high likely hood of success, and will reveal fundamental data on the rates of crustal deformation in this active seismic area.